NEESR-II Large-scale testing and micromechanical simulation of ultra-low-cycle fatigue cracking in steel structures

Cyclic inelastic deformations are the primary mode of seismic energy dissipation in steel structures.
During earthquakes, beam-column moment connections undergo a phenomena called Ultra-Low
Cycle Fatigue (ULCF), which is characterized by very few (<10-20) large strain cycles. ULCF is
quite distinct from low cycle fatigue, which has been more widely studied but does not address the
conditions prevalent in seismic design. Relatively little attention has been given to characterizing the
fundamental failure mechanisms associated with ULCF, due to the lack of suitable micro-scale models
to simulate ULCF and the computational requirements necessary implement the models for studying
large structural components. Existing research on ULCF of steel structures in earthquakes relies
almost exclusively on semi-empirical methods, which cannot be transferred to varied structural
configurations. Moreover, most of the existing empirical research is based on quasi-static testing,
which does not account for earthquake loading rate effects. Such knowledge gaps represent serious
issues for seismic hazard mitigation. The proposed research aims to (1) identify and quantify the
underlying failure mechanisms of earthquake-induced ULCF, (2) develop and implement models to
simulate ULCF in steel structures (3) conduct large scale subassembly tests at earthquake loading
rates to verify and demonstrate the models (4) apply the ULCF models to develop practical guidelines
and recommendations for earthquake resistant design.

A recent study by the PI and his collaborator at Stanford succeeded in developing some of the first
micromechanical models for predicting earthquake-induced ULCF crack initiation in steel structures.
Based on these initial advances, the proposed study will integrate micromechanics concepts with
advanced simulation techniques and parallel-computing to realistically simulate fundamental fatigue-
fracture processes in steel structures. The first phase of the research will include integrated testing and
analyses of welded components to calibrate the material properties in the micromechanical models.
The second phase will use the fast hybrid testing facility at NEES Colorado to test full-scale welded
steel connections results of which will be used to validate micromechanical simulations for predicting
ULCF fractures. The third phase will use the micromechanical model-based simulation framework to
address unresolved practical problems of interest to the design and construction industry, e.g. the
initiation and propagation of ductile fractures in welded steel construction.

Intellectual Merit of the Proposed Research: This research will develop powerful tools to model
crack initiation and propagation at a very fundamental level in structural steel components under
earthquake loading effects. The research will substantially advance the state of knowledge in
fracture/fatigue mechanics and effectively demonstrate the power of micro-scale modeling for
addressing important earthquake engineering problems. This will have both a positive effect on
simulation practices in general and the migration towards a more extensive model-based simulation
environment. Consistent design recommendations based on the simulations will address important
detailing issues and mitigate earthquake hazard. The research will utilize the fast hybrid testing facility
at NEES-Colorado, and the research team is committed to free sharing of data, simulation models, and
other information through the NEESgrid and publication in refereed journals.

Broader Impact of Proposed Research: This research will have a significant impact on the state of
the art in earthquake fatigue mechanics, model based simulation, and design guidelines to protect
against ULCF in earthquakes. Involving expertise from structural engineering, materials and
computational science, this research will promote interdisciplinary technology transfer and
collaboration between the between the two participating schools and the NEES site at CU-Boulder.
An educational impact of this study will include the education of two doctoral students, one each at
UC Davis and Stanford. Moreover, the PI and the co-PI are both responsible for teaching steel design
classes at UC Davis and Stanford, which provide a natural educational opportunity for students to
become engaged in the research through the NEES teleparticipation and database facilities. The
project team is committed to involving under-represented groups in research and will collaborate with
on campus engineering diversity programs to achieve these aims.